Carnegie Academy for Science Education

9353462 Singer This comprehensive project will serve 450 elementary teachers in the District of Columbia Public Schools. More teachers will be served through mentor teacher activities: peer-led workshops for new teachers and as school science coordinators. In the first year (1993-94) 50 teachers from five schools will participate; each year thereafter 100 different teachers from 10 different schools. In intensive summer workshops teachers will: be instructed in the basic concepts of science, experience the best interactive activities, hear scientists share the excitement of doing science, and take field trips; use computers for writing and organizing data, explore strategies for teaching and assessing students, and design an integrated science unit (covering about 6-weeks of study). During the AY teachers will be supported further in monthly workshops and on-site visits by project staff. Each year 10-mentor teachers will be selected from those who attended the previous year. The six themes for the summer institutes are: Earth, Environment, Life, Materials, Energy and Space. Scientists from local research institutions and Carnegie Institution of Washington, DC will provide the science instruction. The style of instruction in the institutes is Instructional Dialogues. A "Users Group" will link teachers and ideas of a speaker to the realities of the classroom. A concerted effort will be made to use and adapt materials from exemplary NSF funded projects: SS&C, Project 2061, NSRC, CEPUP, FOSS, etc. consistent with the DCPS science/mathematics curriculum. Teachers will learn how to plan, develop and use alternative forms of assessment imbedded in the curriculum. Teachers will earn college credits upon completion of the training from Trinity College, Washington, DC. ***